U.S.-France Cooperative Research: Meson Photoproduction

0089670
Tabakin

This award for U.S.-France collaboration between Frank Tabakin of the University of Pittsburgh and Bijan Saghai of the Centre d'Etudes de Saclay, French Atomic Energy Commission, involves the development of the coupled-channel approach to meson photoproduction. The work is largely motivated by the development of intense photon and electron accelerators in the GeV region which has made possible experiments on the production of the elementary particle - mesons, pions, eta mesons, and kaons. The US and French investigators bring to this collaboration complementary expertise and will utilize new computer codes on the coupled channel approach in their analysis of experiments performed at Pittsburgh and Saclay.

This award represents the US side of a joint proposal to the NSF and the French National Center for Scientific Research (CNRS). NSF will cover travel funds and living expenses for the US investigator. CNRS will support the visits of French researcher to the United States.